Scaling up highly-rated curriculum units for diverse student populations: using evidence to close achievement gaps

The project builds on a planning effort to examine the effects of highly rated science curricula on diverse populations of students in a large school district. The proposal now plans to study the effects of 3 highly rated curriculum units on student outcomes (achievement, motivation, and engagement) in the same large, diverse school system. Data will be disaggregated to find out if the curricula produce different effects on various subpopulations of eighth grade students. In addition to achievement data, a study will be conducted of video analyses of student interactions. Finally, a scaling study will examine factors likely to have an impact on the curriculum units' effectiveness, including fidelity of implementation.